Jacob Bernoulli and the Origins of Mathematical Probability Theory

In his Art of Conjecturing, Jacob Bernoulli applied the theory of combinations and permutations and the theory of expectations in games of chance by analogy to political, moral and economic subjects in an attempt to rationalize decision making in those fields. In this way, he helped to create the modern mathematical theory of probability, tying together frequencies of physical events and the evaluation of evidence to provide rational methods of predicting future events or of acting wisely in conditions of uncertainty. Most histories of probability have been written by people with mathematical interests and have emphasized proofs of important mathematical theorems. In studying the early history of probability theory, Professor Sylla aims to redress the balance by paying attention not only to mathematical detail, but also to the social or real world problems that early probabilists such as Bernoulli were hoping to address. A product of this research will be an English translation of Bernoulli's Art of Conjecturing, on e of the classic works of early probability theory. Accompanying that translation will be an introduction, annotations, and mathematical commentary which put the work in its broadest social and scientific perspective.